DCL NSF INCLUDES Workshop: High-Leverage Problems, Useful Data, Formative Evaluation, Effective Communication

SRI International and the Carnegie Foundation for Advancement of Teaching will jointly lead a workshop with the dual goals of supporting INCLUDES ((Inclusion across the Nation of Communities of Learners that have been Underrepresented for Diversity in Engineering and Science) Launch Pilots during their first year and contributing to plans for a National Backbone. The workshop will strengthen and deepen the potential for rapid, continuous improvement cycles within and across INCLUDES networks. To do so, they will combine the expertise of SRI and Carnegie in improvement science, rapid analytics, and fostering networks of researchers and practitioners to engage participants in conducting a complete improvement cycle within and across INCLUDES Launch Pilots.

The workshop will have three phases. A first phase, conducted online, will share expertise related to each of the four parts of a complete improvement cycle: (1) problem definition, (2) data collection, (3) formative evaluation, and (4) effective communication. This first phase will combine an initial presentation with facilitated, online opportunities to interactively engage in the topics. A second phase, conducted face-to-face, will work intensively with teams from INCLUDES networks to improve their operational and long-term plans. The third phase will reflect and report on the workshop and contribute plans to build capacities for the National Backbone organization. Through the combination of these three phases, they will support the first-year work of INCLUDES teams and also refine understanding of how a national network could combine online and face-to-face elements to advance INCLUDES efforts. The workshop team will create and disseminate resources that are immediately useful to INCLUDES and related projects, and the workshop will openly coordinate with other workshops to achieve synergies. The online offerings will be open, broadly advertised, and permanently available. The lessons learned regarding plans for a national backbone will be disseminated broadly. In addition to participants from INCLUDES networks, additional stakeholders will be invited to both phases so as to shape the future plans to achieve broader impacts aligned with overall INCLUDES goals.